Simulation Studies of Phase Seperation, Domain Growth and Surface Phenomena

9310244 Chester We propose a program of Monte Carlo Simulation studies of phase separation, domain growth and surface phenomena. The aim of this work is to apply the new Monte Carlo algorithm to a variety of physical phenomena and to exploit the power of our parallel machines to allow us to simulate large systems which display complex inhomogeneous phenomena.